Graduate Student Travel Support Program for the 2013 V.M. Goldschmidt Conference in Florence, Italy August 25-30, 2013

This award will support participation by graduate students and early career scientists in the 2013V.M. Goldschmidt Conference in Florence, Italy, during August 25-30, 2013. This travel grant will enable the best and brightest students from the US and US Territories, students who might otherwise be unable to attend due to financial constraints at their home institutions, to benefit from all the advantages this meeting has to offer at this turning point in their respective careers. Applications will be collected from the students, then reviewed and ranked by a volunteer committee of scientists. The Geochemical Society is contributing $10,000 so that a total of 40 students, who are presenting their work at the conference, will receive $1,250 each toward travel expenses.

The Goldschmidt conference is the premier venue for geochemistry. Thematic issues to be addressed at the conference span a broad range of sub-disciplines in low- and high- temperature geochemistry, including cosmochemistry, mantle geochemistry, early and deep earth, continental crust, interfacial geochemistry, subduction, evolution of the early Earth's environment, volcanoes and hazards, energy resources, ores, climate changes, atmospheric geochemistry, weathering and tectonics, anthropogenic pollutants, biogeochemistry, analytical and computational geochemistry, hydrogeochemistry, mineralogy and mineral physics. In addition to oral and poster presentation sessions, students will have an opportunity to participate in field trips and workshops associated with the conference.